Best Assessment Process in Engineering Education II: A Working Symposium; Terre Haute, Indiana; October 16 - 17, 1998

9803858 Frair This project is the holding of a national symposium on the best practices in the assessment and evaluation of engineering education. This symposium is the second of its kind, following a successful one held in the Spring of 1997 on the campus of the Rose-Hulman Institute of Technology in Terre Haute, IN. Assessment techniques are required to be used in the evaluation of engineering education activities to see if they warrant being accredited by the Accreditation Board for Engineering and Technology (ABET) under the new accrediting activities of that body which are being introduced in stages up to full use at all US engineering colleges.